Diagenetically Differentiated Marl/Limestones: A Mechano- Chemical Modeling Study

This project consists of testing a model; the model includes results and techniques from rock mechanics, chemistry and numerical analysis and constitutes a new direction in theoretical geochemistry. It deals with alternating bedding features in argillaceous carbonate rocks that have either formed from unbedded argillaceous limestones or have had initial layering very strongly enhanced by deformation. Excellent observational data are available on natural rocks for comparison with the results of the model. A succesful model would greatly improve our ability to understand what textural changes a rock may undergo due to deformation.